A Graphical Experiment Specification Interface: A Reasoning Support System and Experiment Generator for Behavioral Research

The project will provide the research foundation for the creation of a graphical-reasoning-congruent interface and task-table-based experiment-generator software system that enhances the reasoning processes of behavioral researchers in the creation, running, and analyses of behavioral research. The major projects will determine the operators and functions utilized in computerized experiments published in the major cognitive and psychological journals in 1992; implement a research prototype Graphical Experiment Specification Interface (GESI); evaluate the reasoning of behavioral science researchers working with and without the GESI system; and create and assess the precision of hardware and software methods to evaluate critical screen timing and display luminance. Later phases of this project could improve behavioral research methodology in as many as a thousand university and commercial laboratories within three years and allow the US to take a world leadership position in distributing behavioral research software for experiment generation. The research will identify reasoning support tools to advance scientific problem solving that may be transferred to other disciplines and commercial graphical user interfaces. It will enhance graphical user interface technology to provide problem solving and reasoning aids.